Arithmetic Algebraic Geometry

Abstract of DMS 0400877
PI: Douglas Ulmer

Dr. Ulmer proposes to work on three projects ultimately related to the
arithmetic of abelian varieties over function fields. In the first
project, he plans to prove that there exist abelian varieties of
arbitrary dimension whose L-functions vanish to arbitrarily high order
at the center of their critical strips. This generalizes his previous
work on elliptic curves. In the second and third projects, he plans
to generalize his previous construction of local points on the
universal elliptic curve over a modular curve to the context of an
arbitrary non-isotrivial elliptic curve over a function field and to
study the extent to which this construction may be used to construct
global points. This research is intimately connected with the
conjecture of Birch and Swinnerton-Dyer in the function field context.

Dr. Ulmer works in the general area of Arithmetical Algebraic
Geometry, an area of fundamental mathematics that was previously
thought to be beyond application. However, it is now known to be of
crucial importance to many important technologies, such as coding
theory and cryptography, which affect our everyday lives. CD and DVD
players, mobile telephones, and secure internet communication all rely
on mathematics originally created in the pursuit of
questions in arithmetical algebraic geometry. The field also has deep
and mysterious links to other areas of science such as quantum field
theory. Dr. Ulmer's work does not appear to have immediate
application, but his knowledge of this area provides a broad
perspective on modern mathematics and forms the basis for many
education, outreach, and training activities which he is engaged in.
These include the Southwestern Center for Arithmetical Algebraic
Geometry, initiatives in training and mentoring of new graduate
students, and numerous undergraduate research projects.